ITR/IM+SI - MavHome: Development of an Intelligent Home Environment

The MavHome project views a smart home as an intelligent agent, which is able to perceive its environment through the use of sensors and act upon the environment through the use of actuators. The home has overall goals, such as minimizing the cost of maintaining the home and maximizing the comfort and productivity of its inhabitants. In order to meet these goals, the house must be able to reason about and adapt to information using knowledge about databases, machine learning, multiagent systems, robotics, smart sensors, wireless mobile computing, and multimedia computing. Smart homes can potentially minimize home operating costs in a time when utilities fees are becoming prohibitive, and can assist individuals with disabilities to lead independent lives. Through the university visitor program, minority recruitment, course development, and dissemination of results, the project will impact research and education in the area of "smart space technologies."